Scholarships in Science, Technology, Engineering, and Mathematics at Ferris State University

This project is providing academic and financial support annually to thirty-five students in a range of STEM disciplines, including Applied Mathematics, Computer Science, Biological Sciences, Chemistry, and various areas within Engineering Technology. A particular focus of recruitment is on students from groups that are underrepresented in their participation in science. The primary features are a monthly informational and problem-solving colloquium series and student support activities. The colloquium series helps students identify how their fields of study fit into the technical community, and is intended to broaden students' view on interdisciplinary topics. Student support activities include faculty advisors for scholarship recipients, career support services such as career planning, internship opportunities, and permanent employment placement. These support activities help the recipients' academic performance and optimize their career opportunities. An additional emphasis is to increase the number of students transferring from associate degrees to bachelor degrees.